High-energy Implantations in Inp and GaAs

Basic research on MeV energy Si, Be, and B implantations will be performed. MeV energy implantations will be performed at room temperature into semi-insulating or semi-conducting InP and GaAs substrates in the energy range 1 -20 MeV and dose range 5 x 1012 - 2 x 1015 cm -2. The effect of tilt from normal axis, and rotation angle from the major flat, on the shape of the MeV energy as-implanted SIMS atomic density depth profiles will be studied. SIMS measurements will be performed on the variable energy Si, Be, and Fe as-implanted samples to find the four statistical moments of the atomic density depth distributions namely, projected range (Rp), straggle ( Rp), skewness (y), and kurtosis (B). These four statistical moments will be used in profile reconstruction using the Pearson IV distribution. Experimental statistical moments found in our study will be useful to predict the MeV energy implant profiles required for device and modeling.